Development of a Database for Compressive Stress-Strain Behavior of Masonry

New and existing masonry structures are currently analyzed and designed by the concept of an allowable working stress. However, the ultimate safety of a masonry structure depends upon the limit state of the material and construction method. This project will establish the basic stress-strain relationship for various masonry construction.